Mixture Fraction Measurement by Rayleigh Scattering

An investigation into the practicality of using Rayleigh scattering to make direct measurements of mixture fraction, its variance and probability density distribution, as well as its other related statistical properties in turbulent reacting flows, will be carried out. A novel fuel is required, for which the Rayleigh signal is a unique, single-valued function of the mixture fraction, and it has been found from thermodynamic equilibrium calculations that one such fuel which meets this requirement is a mixture of 85% helium and 15% hydrogen. The investigation would establish the efficacy of the proposed technique by evaluating it in several different fast-chemistry mixing-controlled flows, such as the turbulent jet flame, the turbulent opposed jet flame, and the reacting shear layer. The technique would provide new time- resolved information on fluid-dynamic mixing-controlled processes in turbulent fast-chemistry diffusion flames with significant chemical heat release. Such information would be of great value in evaluating the accuracy of numerical models of turbulent reacting flows both controlled and uncontrolled involving more practical oxidizer-fuel systems, by testing their predictive capabilities for this particular oxidizer- fuel system. One of the primary goals of combustion research is to improve the capability to numerically model successfully real combustion systems. The diagnostic proposed here could provide new quantitative information on a number of turbulent reacting flow quantities, up to now inadequately measured. The guidance afforded to modelers through comparisons of such data with modeling predictions would materially advance their abilities to achieve more accurate predictions of the performance of practical controlled combustion configurations.